Experimental and Theoretical Studies of Concentrated PolymerSolutions in Strong Flows

A critical need exists to develop the technology that will allow processing polymers at faster speeds and that will result in polymeric materials with higher degrees of molecular orientation. Such advances will make existing processes more competitive and will increase the prospects for manufacturing valuable new products. It is likely that these goals can be reached if experimental techniques for studying polymers at high strain rates are improved and the resulting information is used to develop a microscopic understanding of how polymer liquids flow. This project is intended to provide this fundamental knowledge. It describes experimental research work on the molecular and fluid mechanics of polymeric liquids subjected to flow types that contain a mixture of shear and extension typically found in commercial processing operations. The experiments will investigate, using a range of techniques, the most important parameters affecting the rheological response: entanglement density and molecular-weight distribution. A data base of this type on materials that have well-characterized molecular structures is the necessary starting point. The molecular understanding so obtained will be used to continue the development of models described in the project. The ultimate goal is to have a detailed understanding of the highly nonlinear response that exits under these conditions and to use this information to devise new processing procedures that will optimize the macroscopic properties of polymers. This research is jointly supported by the Polymers Program in the Division of Materials Research and the Fluid, Particulate and Hydraulic Systems Program of the Division of Chemical and Thermal Systems.